Parallel Simulation Language for Discrete Event Systems

9360420 Diehl This project provides a fundamental change in the way discrete event simulation languages are constructed. The approach parallelizes the performance evaluation experiments instead of the algorithms. By taking advantage of recent theoretical developments in performance sensitivity analysis and stochastic optimization techniques, it will be possible to create a general purpose discrete event simulation language that has the potential of several orders of magnitude improvement in the efficiency of performance evaluation of discrete event systems. The project will result in a user-friendly software package for general discrete event simulation with several orders of magnitude speed improvement, and will enable the solution of performance evaluation and optimization problems previously thought to be beyond reach. ***